RUI: Relativistic Nuclear Reaction Theory and the (p, 2p) Reaction

This RUI grant supports basic research in relativistic nuclear reaction theory. Specific applications will be made to understand present (p,2p) and planned (e,e'p) experiments. Work will also be done on the relativistic 3-body problem.